Plasma Line at Sondrestrom

This proposal provides funds to equip the Sondrestrom incoherent scatter radar so that it can routinely detect echoes from the "electron component" of the backscatter spectrum known as "plasma line". SRI proposes to investigate high-latitude plasma line signatures to design and add appropriate hardware and software, and to achieve a routinely operating plasma line capability for the scientific community.***//